High Pressure Phase Equilibrium Studies Bearing on the Magmatic Evaluation of the Mantle and Crust

This ongoing research has a long-term objective of developing a systematic body of liquidus phase equilibrium data on model chemical systems relevant to the origin and crystallization of the presumed early magma ocean and on the generation of magmas from the Earth's mantle. The proposed projects will utilize piston cylinder and multianvil techniques to determine the phase relationships that control the melting behavior of model amphibolite-kyanite-quartz eclogite at 3 GPa and the melting and crystallization behavior of model peridotite at pressures from 7 - 16 GPa. Results of these studies will directly address aspects of magma generation at subduction zones and will place additional constraints on the formation and crystallization of a presumed early magma ocean.